MGR Honorable Mention: Valerie Ann Moore

This special award will give graduate student Valeria Moore additional flexibility in pursuing her graduate studies and research initiation in sociology. The award will permit this student to attend several national professional meetings and to collect data relevant to her Master's Thesis project. The subject of the latter is the classroom experiences of minority and women faculty, particular those in which their teaching is subjected to inappropriate challenges to their professiorial authority. This award grows out of a special directorate level program to enhance the graduate education of previous applicants of minority fellowship programs receiving honorable mention ratings. This award should strengthen minority research participation in sociology.